On the Geometry of Kahler-Einstein Manifolds

Abstract

Award: DMS-9971506
Principal Investigator: Zhiqin Lu

This project will analyze Kaehler-Einstein metrics on a compact
Kaehler manifold in three different ways. The first one is to
study the potential function of the Bergman metric of a polarized
compact Kaehler manifold. The first several coefficients of the
asymptotic expansion of Zelditch have been computed by the
author. The method I used is complex geometric. Comparing to the
method using the paramatrix of the Szego kernel of the unit
circle bundle, our method is more straightforward. We wish to
have some uniform estimates. Even in the case of complex
dimension one, this problem is interesting. In dimension two,
the problem is already complicated enough. Tian proved that there
is a uniform lower bound for the multi-anticanonical bundle over
a Kaehler-Einstein surfaces. In higher dimensions, the problem
is very important, pointing towards the stability of
manifolds. The second one is the computation of the Futaki
invariants. This problem is related to the previous one in that
the potential function is used in the definition of the Futaki
invariants. Futaki invariants can be used not only as the
obstruction towards the existence of the Kaehler-Einstein metric,
but also can be used to check the stability of manifolds. Since
we are only interested in the Futaki invariants for those
varieties which are embedded into some complex projective space,
it is reasonable to think that we can compute the invariants
using some "extrinsic" information(Such as the polynomials in
defining the varieties). In fact, in the case that the variety is
a complete intersection, we found a formula to calculate the
Futaki invariants. The last one is on the geometry of moduli
space of polarized Calabi-Yau manifold. A Kaehler metric on the
moduli space has been defined and was found that the Ricci
curvature of such a metric is negative away from zero by the
author. Furthermore, if one can prove that the scalar curvature
of the metric is lower bounded, one would be able to prove
Viehweg's compactification theorem using differential geometric
methods.

Einstein's general theory of relativity interprets the concept of
gravity as a geometric property of space-time. The main
mathematical tool to study the geometry of these spaces is
differential geometry. Since the discovery of general relativity,
differential geometry has been crucial to both mathematicians and
physicists. Our project is in one of the main fields in
differential geometry, and should add to our understanding of
gravity and ultimately the space we are living in.